Reclaiming Access to Inquiry-based Science Education (RAISE) for Incarcerated Students

This project is unique in targeting arguably the most vulnerable learners in the American education system: youth confined in juvenile corrections facilities. Three primary problems confronting science education in these settings are: (1) inadequate curriculum and resources; (2) inadequately prepared and supported teachers; and (3) a heterogeneous group of learners, many of whom have disabilities, are disengaged, and/or lack reading and mathematics skills. Failure to address these challenges and the broader educational needs of incarcerated juveniles has broad implications for society, so this project is timely and has high potential for broad impacts.

To address these problems project personnel will employ an iterative development process to develop a curriculum designed to increase access to and mastery of science content, concepts, and inquiry skills critical for careers in the 21st Century STEM workforce. They will then prepare teachers to implement the program in pilot testing in juvenile corrections facilities in Massachusetts. Specifically, the investigators will: (1) align and adapt an existing biology curriculum using Common Core State Standards and Universal Design for Learning principles; (2) develop all materials, digital supports and scaffolds, virtual learning environments and labs, assessments, and teacher professional development materials for one curriculum unit; (3) conduct usability evaluation of all materials and use the results to refine and finalize two curriculum units; (4) prepare teachers to implement the biology program in juvenile corrections education settings; (5) conduct a quasi-experimental study to examine the impacts of the biology program on the content knowledge and inquiry skills of students, their interests, and their levels of engagement; and, (6) disseminate the findings to various constituency groups. The final product will be a Universal Design for Learning, project-based inquiry science program that includes virtual learning environments, virtual laboratories, and digital scaffolds and supports that promote scientific learning for incarcerated youth.